CC* Networking Infrastructure: Cyberinfrastructure improvements for multi-disciplinary data-intensive scientific research

This project addresses four areas of improvement in the College of William & Mary networking that expands its research capacity throughout its two campuses and aims at modernizing the data transfer capabilities. These areas are: Greater transfer speeds between main campus and the Virginia Institute of Marine Science; a Science DMZ for high-speed connectivity for research computing and a dedicated data transfer node which are monitored for quality of service with perfSONAR; addition of dedicated 10Gbps ports for offices and labs of major research network users; and the addition of a Globus license to enable efficient transfers to/from the campus research network. This work upgrades William & Mary’s research computing network to continue supporting multi-disciplinary research which demands higher transfer rates for larger data files needed to support state-of-the-art research.

These network enhancements support cross-disciplinary transformative research and discovery by investigators from W&M’s School of Marine Science (Virginia Institute of Marine Science or VIMS) and W&M’s Global Research Institute, as well as by researchers from Physics, Computer Science and Data Science. The research from this group of scientists contributes largely to the advancement and transformation of various frontiers of knowledge and discovery. Projects like 3D Environmental Flow Modeling, Lattice Quantum Chromodynamics (LQCD, Coastal Biogeochemical Modeling, Deep Learning for Estimates of Development Indicators, Location AI for National Security, the building of novel ML model execution optimizations, and simulations of accelerator designs are examples of the projects with great potential to advance knowledge and dependent on the faster network this new cyberinfrastructure expansion provides.